2014 CPS Medical Devices Workshop Travel Support

This proposal provides for travel of participants of the 2014 CPS Workshop on Medical Frontiers in Research. The workshop is bringing together multi-disciplinary experts from industry, academia, and government to discuss future CPS research challenges in this space. The participants are expert in the foundational science, engineering, and technology underlying next-generation cyber-physical systems, particularly in the context of the application domain of medicine, including medical devices. Through sessions on CPS research in sensing, diagnosis, and prosthetics, the attendees are defining a compelling research agenda in an area of scientific, technical, and engineering exploration that has tremendous societal impact.